Regular Algebras

This award supports the research of Michaela Vancliff to work in
non-commutative algebra, with special emphasis on problems arising
from the theory of regular algebras and non-commutative algebraic
geometry. Vancliff's main objective is to add to the body of knowledge
on regular algebras and to further the existing geometric techniques.
In particular, she is interested in the graded-module category of such
an algebra viewed as a geometric space, with certain graded modules
playing the role of geometric objects. The linear geometric modules
(point modules, line modules, etc) are parametrized by so-called
linear schemes. Vancliff plans to study how the structure and role of
higher-dimensional linear schemes generalize the structure and role of
point schemes. She is also interested in connections between this type
of geometric analysis and that of various Poisson-geometric
structures. Some of these activities entail the development of
fundamental computational algorithms, and their implementation using
a computer-algebra package, in order to enable explicit computation of
linear schemes.

Systems of polynomial-style equations and their solutions play a
critical role in almost every scientific field, such as statistical
mechanics, elementary-particle physics, quantum mechanics, robotics,
crystallography, networking, etc. The solutions are often results that
cannot be found by experimentation nor other methods, and often they
are not numbers but are functions (e.g., differential operators or
matrices), and so, in general, they do not commute. The business of
seeking methods that find all solutions to any system of
polynomial-style equations in non-commuting variables is called
non-commutative algebra. The main idea to find the solutions is as
follows. One associates to such a system of equations an abstract
object called an algebra, which encodes all the properties of the
system. To the algebra is associated abstract objects called modules,
and these encode all the properties of the solutions. Hence, in order
to find all the solutions, one should find and understand all the
modules for the associated algebra. In many of the applications, the
algebras that arise in this way tend to share certain properties; they
are called regular algebras and are the main focus of Vancliff's
projects. One of the goals of non-commutative algebraic geometry, the
subfield in which Vancliff works, is to use geometric techniques to
find some of the modules (point modules, line modules, etc) of the
regular algebra, and then to use those modules to find the modules
giving the solutions to the original system of equations. Vancliff's
underlying goal is to improve on these geometric techniques and to
understand better how they relate to the structure of the category of
modules.